On-Line and Off-Line Error Detection Mechanisms in the Coding Theory Framework

Karpovsky This research focuses on the development of a unified framework for combining on-line and off-line error detection mechanisms at both the chip and board levels. This framework includes: concurrent checking of the device for on-line detection, space and time compression of test responses, analysis of distortions in the resulting signatures for error detection and diagnosis for built-in self-testing (BIST), and concurrent checking of hardware required for (BIST).